RPG: A Genetic Approach to the Analysis of Intracellular Diacylglycerol Transport

9707108 Trotter This is an RPG project which will give the PI an opportunity to develop a research project on diacylglycerol transport using a genetic approach in yeast. DAG is an essential intermediate in lipid metabolism and is involved in cell signaling. DAG moves between various membranes in the cell, but the mechanisms that mediate the movement are not known. A mutant screen will be developed using a fluorescent DAG derivative to find mutants in the transport process. Eventually, the genes involved can be identified and studied. %%% This is a Research Planning Grant project that will explore the development of methods for identifying yeast mutants that are defective in lipid transport between membranes. These compounds are important for membrane function and cell signaling. This work may provide new information about how synthesis is coordinated and regulated. ***